Ultraviolet Radiation Monitoring System at the Bermuda Biological Station for Research

9724810 Nelson This award to Bermuda Biological Station for Research will provide instrumentation for research into ultraviolet radiation in marine and terrestrial environments of Bermuda and the Sargasso Sea. Proposed use of this land- and underwater-based UV monitoring instrumentation includes study of impact of ultraviolet radiation at several wavelengths on marine bacteria, phytoplankton and coral reefs. ***